X-Ray Standing Waves as Probes of Electrochemical Interfaces

This project is in the area of the Materials Chemistry Initiative. The investigators will use an x-ray standing wave in the study of electrochemical interfaces. They will employ this technique in the study of ionic gradients at the electrode/solution interface including potential dependence studies. In addition, they will study the structure of electrodeposited layers; both metallic and polymeric by combining the x-ray standing wave technique with surface EXAFS spectroscopy.